RIA: Neural Network Maps

The P.I. will try to determine analytically the receptive field sizes and the nature of the map from the stimulus to the cortical layer in a class of Hebbian neural network models. In particular, he proposes a generalization of Cooper's network model and shows that it always gives rise to continuous maps if certain constraints are satisfied. Other models to be studied include Amari's network in two dimensions, and an extension of Linsker's model. Highly discontinuous maps occur if the cortical lateral interactions are sufficiently plastic as in Edelman's model, giving rise to neuronal groups. The analysis will provide further insight into the plasticity of neural systems. The P.I. will also try to extend the Hebbian models the treatment of control and change of coordinate problems which have been successfully tackled with feed.forward networks with non.local synaptic rules. This will first be done using simulations of a sensory.motor system with two Hebbian networks working together. He will also show how the encoding of the input and output affects the performance. This will lead to more robust control systems implementable with less human effort.